Dissipative Quantum Dynamics in Cavity Quantum Electrodynamics (Physics)

An experimental investigation of the quantum dynamical processes for two-state atoms strongly coupled to an optical cavity is to be undertaken. The objectives of the research are to explore the spectroscopy of the atom-cavity system as a reflection of underlying quantum structure, to record the photon statistics as a probe of quantum state reduction and quantum coherence for an open quantum system, to observe the response of the atom-cavity system when driven by squeezed light to study fundamental modifications of radiative processes for coupling to phase-sensitive reservoirs, to make measurements of quantum switching and of new quantum phase transitions for an understanding of global quantum coherence in a dissipative setting, and to generate squeezed light by the normal modes of the coupled atom-cavity system for the resolution of previous discrepancies and for spectroscopic applications.